Using Math Pathways & Pitfalls to Promote Algebra Readiness

Project Summary
Using Math Pathways & Pitfalls to Promote Algebra Readiness is a 4-year Full Research and Development project that creates a set of materials for middle grades students and teacher professional development that would support the learning of early algebra. Building on their prior work with an elementary version, the efficacy study focuses on the implementation of the principals underlying the materials, fidelity of use of the materials, and impact on students' learning.
The project's goals are to: 1) develop an MPP book and companion materials dedicated to algebra readiness content and skills, 2) investigate how MPP transforms pedagogical practices to improve students' algebra readiness and metacognitive skills, and 3) validate MPP's effectiveness for improving students' algebra readiness with a large-scale randomized controlled trial.

The iterative design and efficacy studies produce research-based materials to increase student learning of core concepts in algebra readiness. Though the focus of the project is algebra readiness, the study also examines the validity of the pedagogical approach of MPP. The MPP lesson structures are designed to help students confront common misconceptions, dubbed "pitfalls," through sense-making, class discussions, and the use of multiple visual representations. If the pedagogical approach of MPP proves to be successful, the lesson structures can be presented as an effective framework for instruction that extends to other content areas in mathematics and other disciplines.

The project addresses a critical need in education, and the potential impact is large. Math achievement in the U.S. is not keeping pace with international performance. The current project focuses on algebra readiness skills, an area that is critical for future success in mathematics. Algebra often serves as a gatekeeper to more advanced mathematics, and performance in algebra has been linked to success in college and long-term earnings potential. Longitudinal studies indicate that students taking rigorous high school mathematics courses are twice as likely to graduate from college as those who do not. Thus, adequately preparing students for algebra can dramatically affect educational outcomes for students. The current project broadens the participation of underrepresented groups of students in math and later science classes that require strong math skills. The intervention builds on materials and pedagogical techniques that have demonstrated positive outcomes for diverse students. The targeted districts have large samples of English language learners and students from groups traditionally underrepresented in STEM so that we may evaluate the impact of the intervention on these populations. At the end of the project, the publication quality materials will be readily available to teachers and districts through our website www.wested.org/mpp.